Travel: Student Travel Support for the International Conference on Data Engineering (ICDE) 2024

This proposal seeks a travel grant to enable students in US universities to participate in the IEEE International Conference on Data Engineering (ICDE 2024), which will be held in Utrecht, Netherlands, May 13-16, 2024. The grant will be used exclusively for students in US-based institutions, and it will enable the supported students to travel to Utrecht, Netherlands to participate in the conference and its associated workshops. The funding will defray the registration, travel, and lodging costs for the students.

It will enable a life-enriching first-time experience for many students, giving them a taste of the research environment in both academic and industrial circles worldwide. ICDE is a premier conference in the area of databases, and participation in this conference will enable the students to enhance their scientific foundation and build their professional networks.